The Dynamics of Representation: The Public, Politics, and Budgetary Policy

This research investigation focuses on the interrelationship between public opinion and policy over time. While a lot is known about whether public opinion influences policy, little is known about whether the public is itself responsive to policy behavior, adjusting its preferences for policy activity in response to what policymakers acutally do. A responsive public would effectively behave like a thermostat, where a deaprture from the favored policy temperature produces a signal to adjust policy accordingly and, once sufficiently adjusted, the signal stops. This research investigation considers whether the public behaves thermostatically, and relies primarily on statistical analyses of budgetary policy and public preferences for spending over time, across a range of budget opinion domains. The research addresses both the influence of public preferences for more spending on budgetary policy and the influence of those decisions, in turn, on public preferences. Preliminary analysis suggests that there are strong reciprocal connections between public inputs into the policymaking process and the outputs the process generates. In its simplest sense, when the public wants more spending it gets more, and when it gets more it doesn't want as much more. This research produces important insights in the public policy/public opinion interrelationship.